SBIR Phase II: Enhanced Fuel Cell Power with Oxygen Enriching Membranes

9531426 Nemser This Small Business Innovation Research (SBIR) Phase II project explores a new concept for a self-contained, compact oxygen-enriching membrane module that can enhance net peak power of electric vehicle fuel cell (EVFC) stacks by at least 25%. By both simulation and fuel cell tests, Phase I confirmed feasibility of 30-38% oxygen enriched air can improve net peak power (over 35%) compared to gains achieved by conventional pressurization (12%). Cruising efficiency was also found to be improved. Phase II will pursue demonstration of the technology with tests on a 10kw utility vehicle and the effects of higher operating temperatures and increased oxygen levels Potential commercial application of this technology will be in on-board fuel cell power packs for the next generation electric vehicle. It may also find use: 1) on conventional cars and trucks for enhanced engine power and less pollution; and 2) in enhanced breathing apparatus for patients with respiratory ailments.